Atomic Inner-Shell Dynamics (Physics)

Experiments with synchrotron radiation will be undertaken to understand how ionization and rearrangement mechanisms evolve as a function of energy. Resonant scattering theory and relativistic multiconfiguraton self-consistent field calculations will be used to interpret the results. In a second phase of the project the mechanisms will be studied whereby an atom in a very strong laser field absorbs a large number of photons through above-threshold ionization. A model for this process, quantizing the radiation field and making the interaction relativistic, will be developed in terms of time dependent formal scattering theory and its predictions compared with experiment.